ECR: Strategic Integration of MOOCs into Graduate and Professional STEM Programs in 21st Century Research Universities

EHR Core Research
Workforce Development

The University of Illinois at Urbana-Champaign is conducting a workforce development capacity building project that is designed to advance the strategic integration of Massive Open Online Courses (MOOCs) into graduate and professional STEM programs in 21st century research universities by setting the stage for robust research studies. The PI proposes to conduct a workshop to explore pedagogical issues such as the effectiveness of flipped classrooms merged with MOOCs through a rigorous experimental design, data collection, and analysis process. The workshop will provide a platform for thought leaders and key stakeholders, including employers, to discuss paths for incorporating these emerging educational portals and platforms into the existing fabric of universities. They will discuss the findings of the workshop and identify research questions about technology, pedagogy, widespread implementation, and specific implications for graduate education.